Nonlinear Hyperbolic Equations

The project is devoted to two related topics, namely nonlinear hyperbolic
equations and partial differential equations with nonsmooth coefficients.
The hyperbolic equations we consider are either semilinear (such as
the critical Wave-Maps and Yang Mills equations), for which one hopes to
obtain
both local and global results, or nonlinear, for which the aim is to
improve
the local theory. The problems related to partial differential equations
with nonsmooth coefficients are mostly inspired by nonlinear pde's; this
includes various Strichartz and Carleman type estimates, as well as
hyperbolic
boundary value problems.

The equations of interest for this project can be loosely described as
models for wave-like phenomena, such as generalized relativity and
nonlinear ellasticity. While many physical models are genuinely nonlinear,
their mathematical analysis
is extremely difficult, often beyond the current mathemathical theory;
thus,
in most cases we contend ourselves with simplified models which are linear
or only mildly nonlinear. The proposed work is part of a larger program
whose aim is to understand such fully nonlinear equations. The strategy is
to study a sequence of increasingly difficult model problems which get
closer and
closer to the relevant physical model, so that at each step some new
nonlinear feature is understood.